Research in Theoretical Elementary Particle Physics

Research in theoretical elementary particle physics will include work on the nature of spontaneous symmetry breaking, supersymmetry, string theory, conformal quantum field theory, and the problem of the confinement of quarks and gluous. The research involves creative approaches to centrally - important problems in elementary particle theory.